Unusual Error Correcting Codes

Error correcting codes were originally invented to increase the
precision of retrieval, storage and communication of data.
The investigator's goal is to study and develop codes
with new features added on top of the error correcting property,
such as checkability, identifiable parent property (IPP), or
quantum-error correcting property. In spite of the
importance of designing codes with added features,
there has not ben a comprehensive study of them up to date, and each
design is treated as an isolated case. The investigator
wants to put the designs under one umbrella (whenever
it is possible) so that their properties
can be compared and further improved upon.
Among the benefits such improvement can bring about
are better non-approximability results in complexity theory,
better means to trace pirates of electronic images,
and new algorithms for quantum computers.

The investigator was the first to
observe that constructs in the theory of probabilistically checkable
proofs can be viewed as error correcting codes with added features.
The best parameters for these codes and their kins are
still not known, and they are the primary
targets of the proposed investigation in the first year.
The investigator also plans for a study that
would lead to a general checkability theorem for product codes,
with a surprise application in circuit complexity,
and recommends a simplified look at Raz's parallel repetition
theorem. A different thread of the the proposed research
is motivated by questions about schemes
that protect a multi-media publisher against piracy of
electronic images. The publisher can use words of a code
to mark electronic copies of an image. Then, if the code is
appropriately designed, any image forged by combining pieces of two legally
traded images, contains sufficient amount of information to trace
the identity of at least one of the source (parent) images.
Here the problem is to build efficient codes that can identify one of
three or more source images. Other research targets include
efficiently decodable quantum codes, and
complexity lower bounds for dynamic problems via unusual codes.
There is a general framework in which
the investigator plans to do the research. This entails:
1. The study and exploration of the relation in
between different unusual codes;
2. Their classification and axiomatization;
3. Search for novel applications of unusual codes
in the theories of lower bounds and pseudo-randomness,
and in other walks of computer science;
4. Building a 'family tree' of code properties, and finding a match
in between properties and applications.
The methodology should embrace and extend classical coding theory.